The Effect of News Coverage on Public Interest Organizations

The research team investigates the effect of news coverage on decisions of public interest organizations. This project draws on data from newspaper archives and from a survey of public interest organizations to document the effect of news coverage on their structure, strategies and implementation. Unlike prior single-organization studies, this study uses rare, representative data from organizations across the ideological spectrum. These exceptional data allow the investigator to test whether theories based on single-issue samples generalize to other organizations, and to use powerful statistical analysis to identify the different mechanisms for the effects.